Regulation of Proteolysis in Crustacean Muscles

Skeletal muscle is not only important in animal locomotion, but also constitutes a major metabolic store of protein that can be quickly mobilized when dietary intake is insufficient to meet an animal's nutritional needs. During starvation-induced atrophy, muscle protein is degraded to amino acids, which are then used by other tissues for the synthesis of proteins essential for life. In addition, muscle atrophy can be induced by disuse, nerve injury, and disease. In some diseases, such as muscular dystrophy, wasting is so severe that the individual dies. The intracellular regulation of protein breakdown in any animal is poorly understood. The crustacean claw muscle provides a favorable model system for elucidating proteolytic mechanisms. During each intermolt cycle, the claw muscle undergoes a sequential atrophy and restoration, in which protein content decreases 40% during the premolt period and is resynthesized following molt. Atrophy apparently facilitates withdrawal of the pair of large claws at the time the shell is shed. Protein degradation appears to be mediated by five enzymes: four calcium- dependent proteinases (CDPs) and a multicatalytic proteinase (MCP). These enzymes are active at neutral pH and degrade the contractile proteins of muscle. This proposal examines the regulation of intracellular proteolysis in a muscle that resembles, both morphologically and biochemically, vertebrate skeletal muscle. Since atrophy coincides with elevated levels of a steroid molting hormone, experiments will investigate the hormonal control of protein turnover (synthesis and degradation) in claw muscles in culture. Other experiments will identify the major steps in the signal pathway controlling proteolysis. The CDPs and endogenous regulatory factors will be purified for further characterization and production of antibodies. Molt-induced changes in the expression, content, and intracellular distribution of the MCP will be quantified. In addition to defining the function of these enzymes in protein breakdown, these studies will yield new and fundamental information on the regulation of proteolytic processes common to all animal cells.